Asymptotic Behavior of Strong Mixing Sequences of Random Variables and Applications

The principal investigator will continue her work on developing a technique for the study of sequences of random variable which satisfy decomposed mixing conditions. This is a technical condition which allows the investigator to consider the dependent random variable case. The results obtained for decomposed mixing conditions will be applied to the study of the output of some statistical smoothing procedures.